Del Mar College Scholarships in Computer Science, Pre-Engineering, and Mathematics

Del Mar College is awarding 36 scholarships annually in the amount of $2500 for the academic year to academically talented and financially needy students majoring in computer science, mathematics, engineering or electrical engineering technology. Del Mar College serves South Texas including the city of Corpus Christi. Within the college's service area 40% of the adults lack a high school diploma, Spanish is the primary language for 57% of the population and about one-third of the households have an annual income of less than $20,000. This project is building on other NSF supported programs at the institution including ATE, Cybersecurity and AMP projects.
Del Mar College's student body reflects the composition of the local population with 56% of the students being of Hispanic origin. The project is increasing the numbers of individuals from this underrepresented group entering CSEMS supported fields. With over 900 students engaging in CSEMS eligible studies considerable demand for the scholarships exists. The institution has an outstanding student support services program and this project is enjoying broad faculty support.